Acquisition of Inductively Coupled Plasma Optical Emission Spectrometer (ICP OES) for Paleoceanographic Research

This proposal request support to partially fund acquisition of an inductively coupled plasma optical emission spectrometer, which will supplement existing analytical capabilities at Rutgers University. The new instrument will be primarily used for elemental rations (e.g., Mg/Ca and Sr/Ca) in foraminifers and other biogenic carbonates in support of paleoceanographic research. The new instrument will also be available to researchers and students in the Department of Geology and Department of Environmental Sciences at the university for projects that do not require the high-sensitivity and resolution of ICP-MS. The instrument will serve as a training tool for students in the Earth and environmental sciences at both the undergraduate and graduate level.